Conference: 2026 Polar Aeronomy and Radio Science (PARS) Summer School and Training Workshop

Aeronomy is the science of the upper atmosphere, where there is significant ionization. This project seeks funding to organize a summer school in aeronomy related topics, a national training program that prepares students and early-career researchers for work in geospace physics, radio science, and space weather. It addresses a key gap in workforce development: the limited availability of hands-on training in designing and executing active ionospheric experiments. Traditional meetings provide knowledge exchange but do not offer mentored access to large research facilities or the full cycle of experiment development and execution. Polar Aeronomy and Radio Science (PARS) summer school workshop integrates instruction with direct participation in experiments using the High-frequency Active Auroral Research Program (HAARP). Participants gain practical experience in experiment design, operations, data interpretation, and team-based research. This approach accelerates the development of scientists capable of contributing to national priorities in communications, navigation, and space weather resilience. The program strengthens the U.S. geospace workforce, expanding access to unique research infrastructure, and promoting scientific discovery. This effort will produce trained investigators capable of designing and executing active experiments, advancing understanding of geospace coupling, and increasing effective use of NSF-supported facilities.

The proposed activity will be delivered as a hybrid program combining virtual instruction with limited in-person experimentation at the HAARP Research Facility in Alaska. The program integrates lectures, tutorials, and mentored, team-based experiment planning with execution of active ionospheric experiments. The research topics includes ionospheric modification physics, high-frequency radio-wave propagation, plasma wave processes, extreme low frequency or very low frequency generation, remote sensing techniques, and multi-instrument diagnostics. Participants develop proposal-style experiments, complete safety and operations reviews, execute experiments using the HAARP ionospheric research instrument, and conduct initial data analysis. Observations are supported by complementary diagnostics including ionosondes, optical systems, magnetometers, global navigation satellite system receivers, and lidar; many of these are supported through separate NSF grants. This project provides HAARP experiment time and integrated data systems to all the participants and promotes networking opportunities between students, early careers and experienced professionals. The program emphasizes reproducible workflows, rapid communication of results, and pathways to dissemination through several meetings and workshops.